Reovirus-Cellular Interactions, Role of the Viral sigma-l-S and sigma-l Proteins

The goal is to understand the virus-cell interactions that occur during reovirus infection of mammalian cells, with emphasis on determining those virus functions that are responsible for metabolic perturbations and eventual death of the host cell. Attention will be focussed on the proteins encoded by the reovirus S1 genome segment, o1, the virus cell attachment protein, and o1S(p14), whose function is presently unknown. The specific objectives are to determine the function(s) of sigms-1-5 in the replication cycle of reovirus and to investigate the possible involvement of sigma-1-S in the alteration of host cell metabolism. Antibodies have recently been prepared which react specifically to subcellular fractionation studies designed to determine the intracellular localization of sigma-1-s during reovirus multiplication. The interaction(s) of sigma-1-S with other reovirus and cellular proteins, or nucleic acids will also be determined. The proposed research will help determine the function of o1S and the effect of both sigma-1-S and sigma-1 on the host cell. This information will provide a more complete comprehension of the complex virus-host cell interactions that occur during virus multiplication.